Presidential Young Investigator

This research is directed toward understanding the means by which gene expression is regulated in the cells of higher organism. The enzyme, RNA polymerase II is responsible for synthesizing the RNA that serve as messages for protein synthesis. The process of initiation by thus enzyme is intricate but can be broken into a series of simpler, more easily analyzable steps. The components of the transcriptional machinery that act at each of these steps will be identified. Eventually it is hoped to determine how the function of or requirement for these proteins is altered in a cell undergoing a change in its pattern of gene expressions.